Development of Regional Cooperation in Global Change Research

9509268 Spilhaus The Proposed activities will encourage and promote development of regional cooperation in global change research through the System for Research, Analysis and Training (START), a joint mechanism of the World Climate Research Programme (WCRP); the International Geosphere-Biosphere Programme (IGBP); and the Human Dimensions (of Global Environmental Change) Program (HDP). The proposed activities are addressed to development of a global network to promote such research and development of regional data and information systems in Asia and the Pacific and in Eastern Europe and Africa. Integrating scientific issues will be: land use change; coastal zone processes and related land-ocean interaction; terrestrial ecosystems; and impacts of climate change. Activities will include: development of regional cooperative research programs and viable agendas for such research, initiated primarily through scientific workshops and planning meetings; development of integrated data bases and systems for exchange of data and information, especially electronically; development of standards and standard methods, technologies, and formats for collection, processing and exchange of global change data; and promotion of regional and national capacity building.